Dissertation Research: Archaeology of Hawaiian Ceremonial Architecture

Under the direction of Dr. Timothy Earle, Professor of Anthropology at the University of California, Los Angeles, Mr. Michael Kolb will collect data for his doctoral dissertation thesis. In a first stage of this process, Mr. Kolb has collected excavation and survey data on "heiau", impressive prehistoric stone structures located on the island of Maui, Hawaii. Heiau were the scene of religious and political ceremonies which integrated ancient Hawaiian life and were important indicators of a community's political and economic role through time. Although these structures have been known to exist for many years, very little archaeological work has been done on them, and they are not well dated. During his excavation of seven of these structures, Mr. Kolb collected charcoal as well as volcanic glass. Both are amenable to absolute dating, the first by radiocarbon determination, the second by measurement of the hydration rim which develops over time. Prehistorically, Hawaii achieved a chiefly level of society, and islands such as Maui were divided into a number of independent competing polities. Each centered on a heiau. Therefore, by understanding the construction sequence of individual structures and determining its size and number of man-hours involved in building each, it is possible to reconstruct, in general outline, the political prehistory of the island. To accomplish this, however, very careful age determinations are necessary and to this end samples will be radiocarbon and obsidian hydration dated. This research is important for several reasons. It will increase our understanding of how complex chiefly level societies emerge and interact with each other. It will provide much needed information on Hawaiian prehistory and will assist in the training of an extremely promising young scientist.